Regularity and Singularity in Geometric Variational Problems and in Geometric Flow Problems

Abstract for NSF proposal DMS 0104049
(Leon Simon \& Brian White joint P.I.'s)

Leon Simon plans to pursue various questions related to the structure
of the singular sets of minimal submanifolds and energy minimizing
maps, including the extension of his recent work on construction of
singular examples of minimal hypersurfaces. A current aim is to
construct examples of minimal submanifolds with singular sets which
include ``gaps'' and other phenomena, the possibility of which is left
open by his previous general work on the structure of the singular
set. He is also proposing to complete work on the singular set of
mod-2 currents to show that, in all dimensions, the top-dimensional
part of the singular set locally lies in a finite union of
continuously differentiable submanifolds. Simon also proposes to
pursue several questions related to asymptotics on approach to
singularities. Brian White plans to study how regularity properties
and singular structure for minimizing chains with coefficients in a
metric group depend on the group and its metric. This includes study
of immiscible fluid interfaces as a special case. He also plans to
investigate singularities in the mean-curvature flow. He will
continue his investigations of 2-dimensional minimal surfaces, in
particular concerning branch points and concerning total boundary
curvature.

An understanding of singularities, and how singularities are formed,
is a fundamental element in our overall understanding of many physical
and geometric phenomena. For example, in cosmology singularities of
space-time (e.g. ``black holes'') play a fundamental role. Likewise
in the study of the ``canonical'' objects which arise naturally in
topology and geometry, singularities arise in a very natural and
unavoidable manner, and the understanding of these singularities is an
absolutely fundamental problem. As with most non-linear phenomena,
there is not a single general theory which applies in a wide range of
different contexts. Rather, each different context has its own
collection of effective techniques, and it is the development and
application of such techniques in the context of the geometric
calculus of variations which is the focus of the present research
proposal. Specifically, Simon and White propose to continue their
efforts toward a complete understanding of singularities, and how they
are formed, in the context of area minimizing submanifolds and energy
minimizing maps. Such techniques are likely to be applicable to the
study of other objects of geometric and physical significance---for
example to the study of immiscible fluid interfaces, soap-films, and
the equilibrium free surfaces of fluids.